SBIR Phase I: Nanophase-Separating Thermoplastics for Stabilized Liquid Crystal Displays

*** 96-60196 Thurmes This Phase I Small Business Innovation Research project will make Ferroelectric liquid crystal (FLC) gels, using low concentrations of cross-linked monomers, which have the structural integrity of the side-chain polymers, yet the fast switching time of FLC monomers. The project will use thermoplastic additives to achieve the three dimensional lattice formation by spontaneous self-assembly. For large area direct view flat panel displays, the small gap required in FLC devices makes the use of glass substrates problematical. A more attractive approach would be to use commercially available IndiumTinOxide (ITO)-coated flexible plastic substrates and process the FLC device in a web similar to a printing press. Unfortunately, the flow characteristics of FLC monomers make the final plastic sandwich unstable. FLC side-chain polymer s, on the other hand, do work in the web process, but switch too slowly for display purposes. The applications for this technology include flat panel displays, micro displays, and FLC shutters. ***